NRT: National Radio Networking Research Testbed (NRNRT)

The radio frequency (RF) spectrum is a significant national, natural, and renewable resource.
Recently, a number of themes have converged to cause significant reconsideration of how radio
frequency spectrum is managed in the United States and elsewhere. The important themes are:
advances in radio system engineering; end-user interest in mobile access to information;
requirements of national defense and homeland security; recognition that spectrum is woefully
under-utilized; and proposals to dramatically re-architect the modes and mechanisms for using
radio frequency. While for many decades building radios has been relegated to radio engineers,
new ways to communicate while on the move and new mobile services are emerging. Building
mobile networking devices and services requires integrating multiple disciplines including:
electromagnetics, circuit design, signal processing, network protocols, and service development.
The emergence of multiple mobile communication devices and the urge to always be connected
is driving research and investment in new communications services and devices.

The researcher proposes to establish a National Radio Network Research Testbed (NTNRT) to support
research and development of new radio devices, services, and architectures and to provide a
facility for the research community to test and evaluate their systems. The NRNRT consists of
(1) a field deployed measurement and evaluation system for long term radio frequency data
collection and experimental facility for testing and evaluating new radios, (2) an accurate
emulation/simulation system incorporating long-term field measurement for evaluating new
wireless network architectures, policies, and network protocols, and (3) experiments with
innovative wireless networks that integrate analysis, emulation/simulation, and field
measurements.

1.1 Intellectual Merit

Good systems result from a balanced combination of innovation, solid design and analysis, and
test and evaluation. The proposed effort seeks this balance. The fielded measurement and
evaluation system will provide a comprehensive dataset for future design and analysis as well as
a place to test prototype systems. The accurate emulation system will utilize the collected data to
improve analysis of innovative radio devices, protocols, and services. Finally, the wireless
networking experiments will demonstrate innovative services and validate the testbed.

1.2 Broader Impact

The NTNRT will provide a significant resource to the wireless networking research and
development community. First, it will generate a database covering long-term utilization and
propagation characteristics of the RF spectrum that will further understanding of the resources
available for wireless networks. Second, it will provide a facility to test and evaluate new radio
networking devices and systems. And third, it will provide information and techniques necessary
to produce high quality emulation/simulation of emerging wireless devices and systems.
The information gathered and systems demonstrated and evaluated during this project will
provide crucial input to discussions at the national level concerning the future spectrum
management and policies that are required for ubiquitous high performance wireless networks.